COLLABORATIVE RESEARCH: Relief Evolution at the Fluvial-Glacial Transition

9980465
Whipple

Most mid- and high-latitude mountain ranges have been sculpted dramatically
by glacial erosion. The isolated spires, narrow ridges, long bare-rock
hillslopes, and broad valleys of alpine terrain immediately give a
qualitative impression that glaciers are highly efficient erosive agents
and that glacial erosion produces considerable relief. However, little is
known quantitatively about the rates and patterns of glacial erosion, the
factors that control them, nor even the morphological consequences of a
shift from fluvial (non-glacial) to glacial erosion. We propose to exploit
natural laboratories at the southern limit of glaciation where adjacent
fully-, partially-, and un-glaciated, but otherwise similar, basins can be
studied. We identify two field settings in the eastern Sierra Nevada,
California, and the northern Sangre de Cristo range, Colorado, where one
may estimate quantitatively the amount and pattern of topographic change
attributable to glacial erosion alone as a function of the intensity of
glaciation. We propose a research program in these two field settings
combining field mapping, DEM analysis, and cosmogenic isotope dating to
test quantitatively 5 hypotheses developed during a preliminary
investigation of glacial landforms and erosion